CISE Research Instrumentation: A Myrinet Testbed for Research in Distributed Real-Time Environments

9617196 Hou, Chao-Ju Jennifer Han, Ching-Chih Ohio State University A Myrinet Testbed for Research in Distributed Real-Time Environments The instrumentation grant will fund several Sun SPARC stations, one 8-port and seven 4-port Myrinet switches and host interfaces, and two software licenses for Open-Invention visualization to support distributed real-time system research in Computer and Information Science and Engineering. The equipment will be used by five research projects, including - Design and implementation of a load sharing mechanism; - Application of distance-constrained task model to message scheduling; - Design and implementation of a fast restoration mechanism; - Design and implementation of multisensor integration algorithms that take advantage of load sharing and real-time communication schemes; and - Design and implementation of matching and scheduling algorithms, all in distributed heterogeneous environments. All projects are composed of two synergistic parts: development of effective task management schemes, communication protocols, or multisensor integration algorithms based on a rigorous analytical foundation, and their validation with software system building and experiments. The experimentation is essential, since a true evaluation of system performance can only be obtained through implementation and direct measurement. The research instrumentation allows the construction of an inexpensive distributed real-time environment to conduct the work described.